Middle School Science Teacher Enhancement Program

This project, sponsored by SUNY College at Fredonia, is a three year project working with 50 middle school teachers from the local school districts. The teachers will be taught science content and pedagogy skills to prepare them to deliver an interdisciplinary curriculum based upon the New York State Middle School Sciences Syllabus. In addition to the summer program there will be an academic year follow-up program. In total teachers will spend almost 5 1/2 weeks each year on the project. The project topics will include units on computers and technology based instruction teaching of, problem solving and inquiry skills, student centered hands-on activities and leadership development. In addition to support from the college the project is supported by a collaboration of organizations including the local school district, the regional Board of Cooperative Educational Services and the Chautauqua Teachers Center. The matching funds provided by the college and the local school districts are equivalent to about 10% of the NSF grant.